EAGER: Feasibility of Increasing Organic LED Lifetime via Improved Thermal Management

Intellectual merit:

Thermally-induced degradation is widely recognized as a performance-limiting obstacle to the development of organic light-emitting-diodes (OLEDs) with longer lifetime and higher brightness, two essential requirements for continued commercial development. The work proposed here will tests a new
means of re-engineering OLEDs for improved thermal performance based on the implementation of a direct, high resolution thermal imaging technique capable of measuring temperature profiles with a fine spatial and thermal resolution across the light-emitting surface of OLEDs.

Broader impact:

We envision a long-term overall goal of engineering organic and quantum dot photonic devices for improved performance. This proposal will significantly enhance the infrastructure for research and education at Mt Holyoke College, by creating a novel facility for the fabrication of organic and nanoscale optoelectronic devices.